Conference: Red Raider Mini-Symposium on Geometric Analysis and Applications

The “XX Red Raider Mini-symposium: Geometry Analysis and Applications” will take place at Texas Tech University (Lubbock, Texas), on April 24-26, 2026. The scientific focus is a dynamic and influential area with profound implications for mathematics, natural sciences, and modern applications such as artificial intelligence and machine learning. The research talks will be complemented by a poster session and social activities. Thus, it creates a platform for mutual scholarly understanding, networking opportunities, and the formulation of a scientific community with a strong sense of camaraderie. Broader impacts include training graduate students, broadening participation in STEM, building STEM infrastructure, and disseminating knowledge.

The main objectives of this program are the following: advance understanding of significant recent developments in Geometric Analysis and Applications, facilitate interdisciplinary collaboration, promote student engagement, and stimulate future discoveries by identifying open problems and building research networks. Distinguishing itself from similar meetings, this workshop-style event combines complementary areas of expertise in a cohesive manner, with dedicated sessions for early-career researchers and students.